Synthesis, Assembly and Function of the E. Coli H+-ATPase

The research will investigate 3 aspects of the synthesis and assembly of the E.coli enzyme. 1) It has been shown that certain F1 subunits actually open the Fo proton channel. By cloning ATPase genes in various combinations, and by constructing various truncated and mutant subunits, it will demonstrate exactly which subunits, and which regions of those subunits, are responsible for enhancing proton conduction through the Fo 2) It has been shown that a change in gene expression can produce an ATPase with altered energy-coupling characteristics. The different ATPases will be purified and reconstituted to demonstrate what those structural changes are and what effects they have on the enzyme's activity. 3) ATPase subunits are differentially synthesized and then assembled. It will then be determined to what extent newly synthesized subunits are degraded by proteases in vivo and how they might be protected from such proteases during assembly by binding to other subunits. Proton translocating ATPase are large multimeric, membrane- bound enzymes which, acting as ATP in biological systems. They are therefore at the heart of energy metabolism and are central to any discussion or study of biological energy coupling. These enzymes catalyze a reaction whose mechanism is unknown - they couple the movement of protons across a membrane to the synthesis or hydrolysis of ATP. In bacteria, plants and animals they use the proton motive generated by oxidative electron transport or photosynthetic oxygenic electron transport to synthesize ATP from ADP and Pi. The ATP synthase in E. coli can synthesize ATP, and also can act as an ATPase. It is freely reversible in vivo in contrast to the eukaryotic enzyme. It is hoped to answer an as yet, unanswered question, how does energy coupling occur. Dr. Busilow has a very unique approach to explore this problem and is well prepared to carry out this study.